Tools for Fifth Generation Educational Environments

9361647 Schroeder Emerging fifth-generation educational environments will increase the flow of information between the student and the instructional delivery system to levels never before possible. One group of fifth-generation systems, conceptually descended from graphics-based simulators, uses virtual reality (VR) technology to capture motor responses and alter a simulated world accordingly. A proposed second group, conceptually descended from embedded training systems and called a literal reality (LR) system, is the focus of the proposed work. In LR applications, students will move freely about in a real-world educational environment, receiving instructions and feedback in part from tools to be developed in this effort. Three supporting devices will be investigated to determine their potential value as tools for LR and VR systems. Specifically, three-dimensional anthropometry systems and an existing cordless audio computer interface will be investigated, adapted, and tested for their value in LR and VR systems. Also, a computer-controlled laser pointer will be studied for its value as a tool for LR systems. A prototype LR educational environment will be created and demonstrated. ***